Theoretical Studies of the Interaction of Radiation with Matter

Calculations which explore the consequences of ionizing collisions of particles and radiation with atoms are performed using the simplest methodology which gives agreement with experiment. Approaches used include Hartree- Fock, multi-configuration Hartree-Fock, Born approximation and close-coupled techniques.